U.S.-Czechoslovakia Mathematics Research on Iterative Methods for Nonsymmetric Linear Systems and Eigenvalue Problems

The primary objective of this U.S.-Czech research project between Anne Greenbaum of the New York University Courant Institute and Zdenek Strakos of the Institute of Computer and Informations Science, Czech Academy of Sciences, is to analyze and develop iterative methods for solving the non-symmetric linear systems and eigenvalue problems that arise in many areas of scientific computing. Current iterative methods for solving such problems are sometimes effective but lack a firm theoretical foundation and may not be robust. Dr. Greenbaum and Dr. Strakos intend to develop criteria for determining the effectiveness of an iterative method and to design new methods for which these criteria will be satisfied. They will analyze Krylov space methods for shich these criteria will be satisfied. They will analyze Krylov space methods and consider the advantages of choosing approximations from different spaces as well. The researchers hope to explain the success of the biconjugate gradient and QMR (Quasi-Minimal Residual) methods and to analyze the effects of finite precision arithmetic on these algorithms. They also will study the potential for parallelism in various algorithms and develop parallel implementations for specific machine architectures. Altogether results are expected to contribute to our ability to solve large sparse linear equations. Iterative algorithms for such problems are keys to numerous computational solution methods in science and engineering. This project in computational mathematics fulfills the program objectives of advancing science by enabling leading experts in the U.S. and Czechoslovakia to combine complementary talents and pool research resources in the areas of strong mutual interest and competence.